Development of Enhanced x-ray Diffraction Capability for the PNC-CAT Beamlines

9871206
Seidler
An eight-circle psi diffractometer will be acquired with funds from the Major Research Instrumentation program. This diffractometer will be incorporated into the Pacific Northwest Consortium-Collaborative Access Team (PNC-CAT) beamline under development at the Advanced Photon Source (APS). The PNC-CAT includes the University of Washington, Simon Fraser University with associated Canadian universities, and Pacific Northwest National Laboratories. The research to be carried out using this instrument will cover a broad range, from very fundamental and theoretical to very applied projects.
%%%
The diffractometer, to be acquired with funds from the National Science Foundation's Major Research Instrumentation program, will be used for fundamental experiments on materials science and interfaces, in industrial collaborations of vital interest to the economy of the United States, and in applications of recently developed techniques to environmentally relevant problems. In addition, 25% of the available time will be set aside in future years for non-CAT users of the PNC-CAT beamlines.
***